High-Speed Satellite Imaging and Spectroscopy, and Synoptic Atmospheric imaging for Comet Shoemaker-Levy 9's encounter with Jupiter

9322574 Hammel In July 1994 Comet Shoemaker-Levy 9 is predicted to collide with the planet Jupiter. This event will provide a unique opportunity to learn fundamental parameters about the Jovian atmosphere. This project is one of four in a coordinated campaign that involves investigators from the University of Arizona, Lowell Observatory, Massachusetts Institute of Technology, and NASA Ames Research Center. The groups will deploy portable, high-speed CCD systems to four sites spaced in longitude around the globe for the purpose of recording an epochal series of collisions of various subnuclei of Comet Shoemaker-Levy 9 with the planet Jupiter. The objectives of the observations are to obtain images of all faces of Jupiter in several passbands immediately prior to the encounters, to record the flashes produced by the incoming bolides as seen in light reflected off the Galilean satellites, to document the changes produced in the planet's appearance as a result of the impacts, and to record the evolution of affected belts and zones as the planet settles back to equilibrium.